Cold Microphysical Effects on Surface Rainfall Variability in the Tropics

0125706
Georgakakos

The focus of the two-year research project is to quantify the relative
importance of (a) the large-scale forcing fields of water vapor and
thermal buoyancy versus (b) the storm microphysics for the development
of the spatio-temporal characteristics of convective oceanic surface
rainfall variability. Of particular interest is to understand the
effects of cold microphysical properties on rainfall variability at
various spatiotemporal domains and resolutions. The research studies
oceanic rainfall as a first step toward the understanding of the causes
of rainfall variability by separating the large scale forcing and
microphysics from the complex terrain influences present in continental
rainfall. The research results are of fundamental importance for
hydrometeorology and hydrology, and they may be used in applications
such as (a) downscaling or upscaling rainfall estimates obtained by
remote sensing or by large-scale climate models, or (b) hydrologic
design studies requiring rainfall estimates of high spatio-temporal
resolution. Statistical-dynamical numerical models of rainfall genesis
and evolution are combined with data from national large-scale
experiments to achieve the goals of the project. State equations for
the vertical momentum, mass and energy conservation are integrated
efficiently using typical vertical profiles of the state variables,
estimated from field experiments in convective regimes. A number of
quantitative hypothesis are tested regarding the causes of rainfall
variability in domains of a 256-km length, with spatial resolution of 1
km and temporal resolution of 1 min. The models are used in a
Monte-Carlo framework that incorporates uncertainties in observed data,
large-scale forcing fields, and model microphysical parameterizations,
including possible feedbacks from the generated cloud to the near field
large-scale forcing.